Collaborative Research: RII FEC: Risks, Impacts, & Strategies for Coastal Communities: Advancing Convergent Science to Support Climate Change Adaptation & Resilience

Coastal communities face growing and compounding risks that are exacerbated by the effects of changes in extreme weather events and sea-level rise. With nearly twice the global rates of sea-level rise, the U.S. Atlantic seaboard is particularly vulnerable and some communities are disproportionately affected. Advancing our scientific understanding of the physical risks and vulnerabilities to coastal hazards, such as flooding and salinization, is essential for identifying these communities and assessing how threats are likely to impact the wellbeing of people in these areas. The Risks, Impacts, & Strategies for Coastal Communities (RISCC) project brings together researchers and community stakeholders from three EPSCoR jurisdictions representing the lowest-lying states in the country: Delaware, Rhode Island, and South Carolina. The overarching goal of the project is to empower affected local communities to make effective and comprehensive adaptation decisions that support long-term resilience to threats of flooding and salinization. To accomplish this goal, the RISCC team will build convergent and translational research and workforce development infrastructure that integrates behavioral and natural sciences, engineering, economics, public policy, planning, education, and outreach. The team will advance the assessment of risks and vulnerabilities to compounding hazards, identify effective adaptation strategies that are supported by coastal residents and decision makers, develop decision support system innovations based on iterative feedback from users in partner communities, and create novel education and outreach materials that will enhance the capacity of affected communities to increase resilience to extreme weather threats through evidence-based planning and adaptation.

The project will advance knowledge on how affected coastal communities experience and adapt to flooding and salinization. The research team will accomplish this goal with seven objectives: (1) co-develop solutions with partner communities to support sustainable adaptation decisions, (2) develop comprehensive geospatial datasets to advance the assessment of flood vulnerability and mitigation suitability, (3) model and map groundwater flooding and salinization risks, (4) quantify the economic impacts of flooding and salinization, and analyze different community preferences for adaptation strategies, (5) understand how local decision makers assess and plan for climate hazards, (6) integrate research outcomes from natural and social sciences and engineering to develop decision support systems that communities can use to determine which adaptation strategies will likely be effective now and in the future, and (7) disseminate understanding of the science and implementation of coastal adaptation through education, outreach, and workforce development. Faculty and researchers from several institutions will co-create education, outreach, and workforce development materials, which will be widely communicated among students and stakeholders.